CISE Research Infrastructure: System Support for Enterprise Application Servers

EIA-0080206
Keleher, Peter
University of Maryland

CISE Research Infrastructure: System Support for Enterprise Application Servers

This proposal is for the acquisition and maintenance of a single large-scale shared-memory multiprocessor (SMP), and an active disk array. The equipment will be used to support a broad program of research into system support for enterprise applications. These applications include database servers, file servers, multimedia servers, and "enterprise application" servers. Though the group's projects include a broad range of specific activities, the overriding vision for the group will be a unified investigation of how to structure and support large-scale server applications. The researchers will take a vertical approach to this problem, investigating issues at every level from the application down to the network protocol level.